Engineering Research Needs for Off-Shore Mariculture Systems

Mariculture operations must extend farther out to sea to achieve greater water circulation volumes to dilute fish farm washes. In realizing such developments, one faces substantial engineering challenges. Prominent among these challenges are achieving the seaworthiness of the infrastructure, i.e., the containment system for the cultivars (pens, cages, and so forth), the improvement of construction materials in off-shore installations, primarily for the reduction of fouling; and the adaptation of containment or retention methods to the biological exigencies of the cultivars. This engineering workshop focuses on the research needs to solve these problems and will invite internationally-known engineers and marine scientists from the following countries: Japan, France, Canada, and Norway. These countries have extensive federal and private sector off- shore mariculture research and development programs. Exchange of information on engineering approaches to off- shore mariculture promises a clearer definition of where engineering problems lie and how research activities should be formulated and organized to overcome these problems.